Acquisition of a High-Performance Two-Sector Mass Spectrometer for Research in Chemistry and Material Sciences

9871451
Kaltashov
A high resolution magnetic sector mass spectrometer will be purchased under this Major Research Instrumentation award. The instrument includes a high-resolution, high-transmission efficiency, and high m/z range double focusing mass analyzer. The mass spectrometer is equipped with a standard electron impact/chemical ionization ion source, as well as easily interchangeable fast atom bombardment, electrospray ionization and field desorption/ionization sources. The configuration also includes two collision cells and a linked scan unit providing tandem capabilities. Major users of the instrument include groups from the Department of Polymer Science and the Department of Chemistry. The instrument will also benefit a large group of minor users from other departments such as Biochemistry and Molecular Biology, Veterinary and Animal Science, Department of Chemical Engineering, Food Science. It will also be used by researchers from Amherst College and Mt. Holyoke College. The 16 research groups that will be users of the mass spectrometer include 22 post-doctoral fellows, 82 graduate students and 33 undergraduate students.
%%%
The high resolution magnetic sector mass spectrometer purchased with the Major Research Instrumentation award will become a part of the University of Massachusetts' Mass Spectrometry Center. Because of its high resolution, unmatched mass accuracy and a variety of ionization modes, the new instrument will greatly expand the analytical capabilities offered by the Center.
***